Extensional Tectonics in the Manaslu-Dhaulagiri Region, Central Nepalese Himalaya

One of the significant recent developments in continental tectonics is the appreciation of the widespread role of extensional structures is the evolution of convergent plate margins. It is becoming increasingly clear that extensional faults with large displacements can form during compression in convergent settings. This project will utilize the south Tibetan detachment system of the central Himalaya to study an active sample. The system contains a north-dipping group of normal-sense shear zones that are thought to have accommodated gravitational collapse of the Himalayan topographic front in Miocene time. The work will focus on determining the possible multiple generations of extensional activity during continent-continent collision by mapping, structural and geochronological techniques. Results are expected to help define the causes and mechanisms of large-scale extension within active convergence zones.